Gravitational Radiation

Water, sound and electromagnetic waves are examples of wave phenomena that occur in most physical systems. General relativity, Einstein's reformulation of Newton's gravitational theory, predicts that accelerated masses produce gravitational waves analogous to the way charges produce electromagnetic waves. Effects of gravitational waves on the orbits of binary pulsars have already been detected and observatories sensitive enough to observe the waves from distant galaxies are now under construction. The goal of this project is to develop methods for relating the properties of these waves to their sources so that the details of the emission process, such as a black hole collision, can be inferred. It utilizes a new and powerful computational approach to general relativity based upon the light rays along which the waves travel.